Undergraduate Research in Optics (Physics)

This award was made to Professor Becker at the San Jose State University, as part of the Research Experiences for Undergraduates program. It will support undergraduates working with research scientists in research projects of mutual interest. This program is designed to encourage further study in the sciences by undergraduates. It is a response to the growing need for trained scientists and engineers.